SGER: Integrated-Optic Delay Network for Optical Coherence Tomography

0134707
Izatt
Optical coherence tomography has matured into a successful mesoscopic biomedical imaging technique, and is currently under investigation for many applications in fundamental biology and clinical medicine. Real-time imaging is particularly pertinent in medical diagnostic situations, where it is desirable to screen large tissue regions rapidly. This submission proposes development of a radically new concept for a mass-produced, inherently robust, digitally addressed integrated-optic optical delay line for optical coherence tomography. Successful demonstration of the integrated addressable delay will lead to development of a fast, arbitrarily addressable delay module which would serve as an enabling technology to allow for wider application of this imaging technique.